Joint Performance Optimization of Wireless Networks and Control Systems

Joint Performance Optimization of Wireless Networks and Control Systems

Current control technology is not well suited
to operation over a packet based network, and conversely,
most networks are not optimized for control applications.
Moreover, critical network performance parameters that affect control
system performance, such as bit rates
and delay and packet loss statistics, depend on various
choices made in the network, such as powers allocated to wireless
transmitters, bandwidths or time-slot fractions allocated to
channels, and routing methods.
So in addition to the challenge of working out how a control
system can be made to work in a packet-based
networked environment, we also
have the challenge of working out how the network should be
configured, or operated, so as to improve control system performance.
This proposal addresses two fundamental issues that arise.
Neither solves the whole problem, but each addresses a critical issue.

The first topic involves joint optimization of
a controller and critical communication and network
parameters such as transmit powers, packet routing, and
bandwidth and time-slot allocation.
To simplify this problem, only the affects of these
network parameters on bit rates, hence quantization noise, is
considered. The second topic considered is
simultaneous routing and resource allocation for wireless
data networks.
This is the problem of jointly finding an optimal set
of flows and communication resources that maximize the performance of
the network, with respect to some objective such as optimal
control system performance.
Here we hope to develop algorithms to dynamically allocate
communication resources (such as transmit powers, bandwidth)
and simultaneously optimize routing decisions.